Workshop: Instabilities and Nonequilibrium Structures, Valparaiso, Chile, December 1989.

This award supports an international workshop on nonequilibrium physics to be held at Valparaiso, Chile in December of 1989. The U.S. organizer is Neal Abraham of Bryn Mawr College. His Chilean counterparts are Enrique Tirapegui of the University of Chile and Walter Zeller of the Catholic University in Valparaiso. The workshop will draw about eighty scientists from Latin America, twenty European scientists and eight from the U.S. The principal speakers will come from all three communities and will lecture on topics in instabilities and nonequilibrium structures, a subject which has shown remarkable growth and development over the last decade. The workshop will focus on the statistical mechanics, pattern formation, nonlinear dynamics, chaos and turbulence of nonequilibrium systems. This is a subject of much current interest with broad applicability in fluid dynamics, lasers, plasmas, superconductivity and molecular and quantum dynamics. Because of the variety of analytical, numerical and experimental tools for the study of these various experimental systems, this is a good topic for the interaction with a wide range of experts with interested scientists in Latin America and will help the local scientific community to produce at an international level.